Theory of Many Body Systems

This grant supports the application of microscopic, many- body calculations to a variety of physical problems including state-dependent nuclear interactions, 3He - 4He mixtures, finite temperature variational theory, helium films on structure functions of surfaces and droplets.